A Bacolovirus-induced RNA Polymerase

Early transcription in the nuclear polyhedrosis virus of Autographa californica is directed by the host RNA polymerase II, while late transcription depends on an a-amanitin-resistant, virus-induced polymerase. The baculoviruses are increasingly important as expression vectors for producing large quantities of useful proteins. An understanding of baculovirus gene expression will probably lead to better vectors. In particular, an understanding of the unique, a-amanitin-resistant, virus-induced RNA polymerase would be especially valuable, since this is the enzyme that transcribes the cloned genes in baculovirus expression vectors. The immediate goal of this project is to map and characterize the genes encoding this enzyme. The specific aims are: 1. Isolating viral mutants with lesions in the genes encoding the late-specific viral RNA polymerase. This will be accomplished in three steps: a. Obtaining temperature sensitive (ts) viral mutants that are deficient in late gene expression, as evidenced by failure to form non-occluded virions. b. Screening these ts mutants for the inability to carry out a-amanitin-resistnt late transcription at the non-permissive temperature in isolated nuclei. c. Screening the positive mutants from specific aim 1b for a ts virus-induced polymerase by purifying the enzyme and showing that it is ts in vitro. This would also demonstrate conclusively that this is indeed the polymerase responsible for late viral transcription. 2. Mapping the mutant genes from specific aim 1c. This will be done by rescue of the wild-type phenotype with cloned fragments of the viral genome. 3. Sequencing the mutant genes and their wild-type counterparts to locate open reading frames and the lesions responsible for the ts phenotype. In the unlikely event that we cannot find mutants in the genes for the virus-induced RNA polymerase itself, the ts mutants we do isolate should be in the genes for late-specific transcription factors. These are also of great interest, and will be mapped and sequenced.